SGER: Discrete Event Simulation of Self-Assembly Kinetics

EIA-0320595
Russell Schwartz
Carnegie Mellon University

Project Summary: Discrete Event Simulation of Self-Assembly Kinetics

The goal of this project is to develop a novel computational tool for simulating generalized self-
assembly systems. Self-assembly systems consist of many small components, or subunits, that
spontaneously arrange themselves into larger structures under appropriate conditions. Among the
many medically important self-assembly systems are viral protein shells, or capsids, which form
protective coats around the genetic material of viruses; amyloids, fibrous agglomerations of
proteins that are implicated in Alzheimer.s disease, Huntington.s disease, and the prion diseases;
and irregular protein aggregates. For all of these systems, the process of assembly is only
partially understood. In addition, self-assembly has attracted recent interest as a means of
constructing man-made devices and materials on the nanometer scale. Due to the small size,
speed, and complexity of many self-assembly processes, they have proven difficulty to analyze
experimentally. Simulation approaches have therefore emerged as a crucial avenue for gaining
insight into the self-assembly process. This project seeks to build on the prior work in the area by
creating a model of the self-assembly process sufficiently versatile to capture a wide variety of
self-assembly systems, yet fast enough to handle realistic simulation sizes in a reasonable time.

The basic methodology will involve combining techniques developed in prior modeling work on
this problem with a computational method that has not previously been used for self-assembly
simulation. The simulator will use a model of self-assembly dynamics based largely on the prior
.local rules dynamics. model, which provided a versatile representation of high-level self-
assembly behavior in terms of low-level subunit interactions. It will be efficiently implemented
using a computational data structure called a .discrete event priority queue,. which will allow the
simulator to step between changes in discrete state (such as subunits binding to one another)
without the need for explicit integration over all time steps. The result will be faster simulation of
a highly general self-assembly model than was possible with prior methods. The simulator will
be implemented in Java to facilitate ease of development, extensibility, and portability.
Implementation will be conducted through distinct phases devoted to developing an object model
(which specifies how pieces of computer code interact with one another), coding and testing a
prototype simulator, and finalizing an optimized and well documented release-quality version.
The end result will be both a stand-alone simulation tool and a set of computational classes
available for extension and use in other programs. This work will require innovation primarily in
mathematical models of self-assembly processes and in algorithms for their efficient simulation
by a discrete event queue methodology. Further innovation will be needed in the integration of
existing knowledge from such areas as biophysics, algorithms, software engineering, and user
interface design to produce a versatile, easy-to-use graphical simulation tool.

The project can be expected to yield several benefits. Its impact will be primarily on the field of
self-assembly, by providing a general tool that can be used by researchers throughout the field for
modeling known systems across size and time scales, developing computational prototypes of
novel systems, and experimenting with interventions in both. It will also provide new methods
and experience to the general field of biophysical simulation through the development of a novel
simulation methodology, its implementation in a computational simulator, and optimization of
algorithms for this problem. The cross-disciplinary nature of the project will enhance its impact
by providing for the computational community new variations on problems to be found in
biophysical systems and providing for the biophysics community new computational techniques
that can be brought to bear on other problems. The work will also have educational value by
providing interdisciplinary research experience to students, including two undergraduates, and by
providing a simulator that can be used as both a research and a teaching tool.